Vortex Matter in Trapped Bose-Einstein Condensates

Specific projects proposed are: vortex pinning and pinning-induced structural phase
transition in vortex lattices; vortices in dipolar condensates where the long-range
and anisotropic dipolar interaction may change the structures of individual vortices
or vortex lattice in a significant way; and quantum and thermal melting of vortex
lattice and their relation with the presence of pinning or dipolar interaction. These
projects will provide a deeper understanding of vortex matter in trapped atomic
condensates, make contact with condensed matter theory and pave ways for further
experimental studies.